How Young Stars Behave in Couples and the Impact on Binary Formation, Disk Evolution, and Planet Formation

This is an observational project devoted to measuring stellar and disk properties for a hundred young multiple star systems using high-resolution spectroscopy and imaging techniques at infrared wavelengths, mainly using Keck Observatory. She will use the data to determine effective temperatures, radial velocities, rotation rates and surface gravities of stars, as well as accretion rates and magnetic fields associated with surrounding disk material. The data will be used to test models of binary formation and angular momentum distribution of planetary systems and circumstellar disks.

Broader impacts include training a postdoctoral researcher, and updating a website with a database on visual binary stars for the community. The PI also plans to continue giving astronomy presentations to local senior centers.